Special Minority Award (Physics)

This Special Minority Award provides a second year of support for Gloria Carrillo, a graduate student at the University of Minnesota. The award will allow Ms. Carrillo to finish her course work more expeditiously and reach the research participation phase sooner. This award is an integral part of the strategy of the National Science Foundation to strengthen and increase minority participation in the field of physics.